Dissertation Research: Re-Mapping Expertise and the 'Nature' of Environmental Management--Understanding Knowledges in Practice

ABSTRACT
OPP 0425873

This is a dissertation research project that is an exemplary collaboration between the researcher and a community in Interior, Alaska to examine the issue of co-management of natural resources and its affects on local empowerment. Focusing on two key resources to interior Alaskan people, moose and waterfowl, the researcher will examine the nature of indigenous knowledge and its use in decision-making. In addition, this project not only studies local indigenous knowledge and use but will also study science and scientists' ways of knowing and how knowledge is produced and transferred among both groups.